Collaborative Proposal: Biodiversity discovery and analysis of "Aigarchaeota", a globally distributed but poorly understood archaeal lineage

Over half of the major groups of microorganisms on Earth have never been cultivated in the laboratory, and most have never been explicitly targeted for scientific investigation and remain poorly understood. One such group of microbes is Aigarchaeota, a diverse, globally distributed group that inhabits terrestrial, geothermal hot springs and marine hydrothermal vents. The overall goal of this project is to dramatically expand our knowledge of the species diversity, distribution, ecological function, and organismal biology of Aigarchaeota and to establish a taxonomic classification for the entire group. More generally, this project aims to set a precedent for the investigation of poorly studied microbial biodiversity and integration of biodiversity research on microbes into a meaningful taxonomy. This project will support a variety of researchers at Minority-Serving Institutions and Hispanic-Serving Institutions, and will provide research opportunities for students who are underrepresented in science. In addition, this project will contribute to an educational outreach program that provides content knowledge to K-12 students and teachers throughout from Clark County School District, and provide high-school teachers the opportunity to participate in a workshop and field excursion to collect samples for microbial analysis.

This project focuses on two major study sites, Great Boiling Spring in northwest Nevada, and springs in Tengchong County, Yunnan Province, China, but also includes investigations of terrestrial and marine geothermal systems worldwide. The specific aims are: 1) To discover new Aigarchaeota taxa and erect a candidate taxonomic structure, 16S rRNA gene sequences amplified from natural samples and mined from databases will be combined with single-cell genomic and metagenomic datasets; phylogenetics, phylogenomics, comparative genomics, and ecological niche modeling will be integrated to erect a candidate taxonomic structure; 2) To assess the function of Aigarchaeota, stable isotope labeling experiments, quantitative reverse-transcriptase PCR, and metaproteomics will test explicit hypotheses about Aigarchaeota metabolism, providing a window into how Aigarchaeota organisms function in nature; and 3) To cultivate, isolate, and describe Aigarchaeota pure cultures, enrichment cultures will be established in the laboratory and used to try to isolate and describe axenic cultures by using both traditional and innovative approaches. The combination of large-scale data mining, phylogenetics, taxonomy, ecological niche modeling, and field and wet lab work described here spans all components of the Systematics and Biodiversity Sciences Cluster and aims to transform our knowledge of a major lineage of Archaea and provide insight into species- to domain-level evolution.